Collaborative Research: CT-M: Privacy, Compliance and Information Risk in Complex Organizational Processes

Modern organizations, such as businesses, non-profits, government
agencies, and universities, collect and use personal information from
a range of sources, shared with specific expectations about how it
will be managed and used. Accordingly, they must find ways to comply
with expectations, which may be complex and varied, as well as with
relevant privacy laws and regulations, while they minimize
operational risk and carry out core functions of the organization
efficiently and effectively. Designing organizational processes to
manage personal information is one of the greatest challenges facing
organizations (see, e.g. a recent survey by Deloitte and the Ponemon
Institute [TI07]), with far-reaching implications for every
individual whose personal information is available to modern
organizations, i.e. all of us.

This project responds to these challenges by developing methods,
algorithms and prototype tools for integrating privacy, compliance,
and risk evaluation into complex organizational processes. It
explores, articulates and characterizes formally the scope and nature
of privacy-expectations of stakeholders as well as those of key
regulations, such as HIPAA, GLBA, COPPA, BASEL 2, and Sarbanes-Oxley
(SOX). It incorporates the diverse perspectives and areas of
expertise of its multidisciplinary research team, which includes
three computer scientists, one philosopher, and collaborating
researchers from IBM. This industry connection facilitates
interaction with product teams that have served complex organizations
concerned with business process integrity, information security,
privacy, and information risk management. The research builds on
"contextual integrity" (a philosophical account of privacy) as well
as language and risk-based methods for privacy policy specification
and enforcement. Extensive training and educational opportunities are
provided to undergraduate and graduate students and research results
integrated into courses at CMU, NYU, Stanford, and UPenn.